IEEE Communications Society Conference on Sensor, Mesh, and Ad Hoc Communications and Networks (SECON) 2012: Student Travel Awards

This project supports students to attend the Ninth Annual IEEE Communications Society
Conference on Sensor, Mesh, and Ad Hoc Communications and Networks (SECON 2012) to be
held in Seoul, South Korea in June 2012. SECON is a premier conference in the areas of sensor, ad
hoc, and mesh networking, serving as a meeting point of researchers from academia and industry,
as well as practitioners in diverse fields of wireless communications and networking. This project
supports travel to the conference for US based graduate students who might not otherwise be able
to attend for financial reasons. Students will be exposed to the conference, a technical forum that
is critical for their professional maturity and development. Students will also be involved in various
activities and work as volunteers to support these activities, increasing their level of involvement
and connection to the conference and the research community.